Measuring Air-Sea Gas Exchange in High Winds for Improvement of Physics-Based Air-Sea Transfer Parameterizations

The parameterization of air-sea interaction at high wind speeds continues as a topic of great interest to air-sea exchange. Being able to predict air-sea gas exchange of radiatively important gases such as carbon dioxide is needed to project climate scenarios. A previous NSF award (AGS- 1036062; 1036006 Collaborative Research: Measuring Air-Sea Gas Exchange in High Winds for Improvement of Physics-Based Air-Sea Transfer Parameterizations: HiWinGS) funded a 4-year project to develop and improve gas exchange measurements. A HiWinGS cruise to the Labrador Sea was successfully completed in Oct-Nov 2013, yielding more than 700 hours of coordinated flux and wave physics observations, including more than 100 hours at wind speeds of 15-27 m/s. This is a unique data set.

Specific goals of the analysis work undertaken here are to:
1) present an analysis of the observed transfer coefficients for heat, momentum, the trace gases DMS and CO2 with respect to wind speed, stress, bubble plume characteristics and sea state;
2) further develop the refined physical representations for gas transfer at high wind speeds in available bulk flux algorithms; and
3) engage in a critical assessment of the various CO2 flux data sets obtained from the HiWinGS cruise.